Engineering Senior Design Projects to Aid the Disabled

0078748
Hefzy,
This five year continuing award will fund Undergraduate Design Projects to develop custom assistive devices for persons with disabilities. A group of students and the investigators on the project will work on these projects with health care personnel and patients at the Physical Medicine and Rehabilitation Unit of the Medical College of Ohio. At the end of each semester an exposition is to be organized to display the prototypes built by the students along with final oral presentations of their work. Ten projects per year are to be completed and written reports on the projects will be submitted for an annual publication.

This type of undertaking is important as it provides meaningful projects for engineering students to complete as part of their undergraduate design requirements and also benefits a population where customization is often needed for rehabilitation devices.